An REU Site on Water Resources in Developing Countries

This award provides funding to the University of Notre Dame for the support of a three-year, REU Site on Water Resources in Developing Countries, under the direction of Dr. Stephen E. Silliman. This eight to ten-week summer program, conducted in collaboration with the University of New Mexico and the University of Nevada, Reno, will involve eight students annually in international research opportunities in several developing countries focused on improving water resources (including water supply, water distribution, water disposal, water management and/or water treatment. In addition, the REU participants will participate presentations of technical, social and ethical outcomes at conferences and symposia. The NSF Office of International Science and Engineering is providing co-funding for this REU Site.